SGER: Multi-scale Modeling for Homeland Security and Supply-Chain Logistics Efficiency

This Small Grant for Exploratory Research (SGER) formulates multi-scale
spatial modeling procedures for handling data in various details to support
solution of complex logistics optimization problems. The investigators
develop reliability concepts useful in the logistics field for solving
homeland security related problems. Finally, this project integrates
probability and statistical models with operations research tools to
improve seaport container-operation efficiency to meet the needs of
security inspections.

Evaluation and design of secure and reliable supply-chain logistics
networks are of critical importance to the modern U.S. economy. In
particular, balancing security and efficiency objectives in the design and
operation of transportation logistics systems and seaport container
inspections is vitally important, and to do so presents unique mathematical
and statistical modeling challenges. This interdisciplinary team of
statisticians and logisticians will bring years of experience in research
and education to explore the potential in this field. The key scientific
impact of this project is that the theory and methods developed in this
project serve as the foundation for advances in multi-scale data modeling
and hierarchical decision-analysis tools. This project also provides
several broader impacts required by the NSF, e.g., collaboration with
industry for disseminating research results, education of high-quality
students through thesis advising and class teaching (with case studies
explored in this project), and support of summer research experience for
students from underrepresentated groups.